RUI: Search for Neutrino Oscillations with High Sensitivity

Research will be carried out on the properties of neutrinos, specifically the oscillation between muon- and electron-like neutrinos and anti-neutrinos, which occurs by virtue of their having different, albeit very small masses. A large detector being built at the LAMPF laboratory will be used in conjunction with the LAMPF beam stop as a source of muon neutrinos. New limits on the mass difference will be set, thus providing basic information on these fundamental particles, and facilitating comparison with mass differences inferred from direct observation of solar neutrinos. The PI and undergraduate students will carry out development of various elements of the data acquisition system, both hardware and software.